Analysis of the Shelf Mixed Layer Experiment (SMILE) Data Set

In this project, the PI's will continue to study the response of the continental shelf surface boundary layer to atmospheric forcing through analysis of data from a major collaborative field experiment, SMILE (Shelf Mixed Layer Experiment). SMILE was conducted over the northern California shelf from mid-November, 1988 to mid-May, 1989 and included moored and land-based ocean and atmospheric time series measurements and overflights with an instrumented aircraft. Addressing several specific tasks will lead to a coherent picture of the seasonal behavior of the shelf surface boundary layer and its response to atmospheric forcing.